Geochemistry of the Belt Supergroup (Middle Proterozoic), Montana: Paleoenvironmental Implications

9405689 Lyons The goal of the proposed two year study is to perform the first detailed geochemical assessment of the Middle Proterozoic Belt Supergroup, northwestern United States, with specific emphasis on paleoenvironmental reconstructions. Despite its importance within the context of Precambrian research, fundamental environmental questions remain unanswered. Previous interpretations of marine and nonmarine depositional conditions have relied on an ambiguous set of stratigraphic and sedimentologic observations, yet geochemical studies that might provide new interpretive insights have remained largely unexplored. These data will also directly address the resource potential and the regional patterns of postdepositional alteration of a classic, economically- significant Precambrian basin. Research plans call for an evaluation of C-S-Fe systematics and C-O stable isotopic trends within organic-rich shales of the lower Belt Supergroup and limestones and dolomites of the middle Belt carbonate unit, respectively. Through collaborative efforts, this study will be undertaken within a strict stratigraphic and chronologic context. Although the C-S-Fe system has proven value for the interpretation of Phanerozoic paleoenvironments, its potential for studies of the Precambrian has gone virtually untested. The results of this study should provide critical insight with regard to controversial Proterozoic continental reconstructions. Furthermore, a carefully- defined marine end member within the Belt Supergroup would permit a direct characterization of the chemical composition of the poorly constrained Proterozoic ocean.